CRLT: Making Learning a Part of Life: Theories, Technologies, Practices, and Assessment in Support of Lifelong Learning

9616485 Fischer, Gerhard Arias, Ernesto University of Colorado CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies Program: Making Learning a Part of Life: Theories, Technologies, Practices, and Assessment in Support of Lifelong Learning The University of Colorado has been awarded funding in the amount of $50,000 for a period of 12 months to initiate a planning effort to establish a CRLT Center focused on the theme "making learning a part of life; theories technologies, practices, and assessment in support of self-directed life long learning." The Center will build on funded research in computer science, cognitive science, psychology and education. The University of Colorado and its extended community will function as a testbed for the development and evaluation of learning technology tools and approaches. The planning grant will allow current research approaches to be shaped into specific activities that will comprise the collaborative project of the Center. Partners in this planning grant include Apple Computer and Boulder Community Network.